Mathematical Sciences: Gordon Research Conference on Statistics in Chemistry and Chemical Engineering

This award partially supports the 1991 Gordon Research Conference on Statistics in Chemistry and Chemical Engineering. The award will supplement funding provided by the special fund of the Summer Gordon Research Conference to provide travel and subsistence expenses for the scientists who will be speakers and discussants. The 1991 Gordon Research Conference will involve leading statisticians, chemists, and chemical engineers from industry, government, and universities and from other countries. The presentation and discussion will focus on innovative research ideas in applied statistics used in the analysis of chemical phenomena.